STEM Advancement through Collaboration in STEM Teacher Preparation

This Noyce Track 1 project aims to serve the national need of preparing highly-qualified STEM teachers by providing two-year scholarships for four cohorts of 7-8 undergraduate majors in biology, mathematics, chemistry, or general science for a total of 30 Scholars over five years who then serve and are retained in high-need school districts. These Scholars are supported through scholarships, internships, Community of Practice activities, along with faculty mentoring and advising, conference experiences, field experiences in high-need schools, and comprehensive induction support. The project components enable high-achieving prospective teachers to become secondary STEM teachers with extensive expertise in active learning instruction. The preparation of these STEM teachers includes development of content expertise and the ability to use evidence-based practices and includes the innovative practice of engaging university STEM faculty in co-teaching in high-need STEM classrooms with secondary STEM teachers and students to promote mutual learning.

This project at Westfield State University (WSU) includes partnerships with high-need local educational agencies, Springfield Public Schools, and Holyoke Public Schools. Project goals include: 1) increased recruitment of STEM majors into WSU STEM secondary education licensure programs; 2) increased STEM teachers graduated and placed in high-need schools in the region, 3) enhanced WSU secondary STEM teacher preparation courses to better prepare aspiring STEM teachers; and 4) establishment of a community of practice among aspiring, practicing, and early career secondary STEM teachers and WSU professors. The project aims to increase the number of qualified STEM teachers by 28 over five years and will be iteratively evaluated, guided by the evaluation questions: To what extent did the project (a) increase the recruitment, graduation, and placement of licensed secondary STEM teachers in high-need schools, and (b) create a community that effectively supports the academic, social, and professional development of pre-service, in-service, and college-level STEM and education faculty? The results of this project will be disseminated nationally to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Project (Noyce). The Noyce project supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.